Research Experience for Undergraduates in Process Automation and Device/Circuit Designs for Semiconductor Manufacturing

9820348
Qu, Zhihua
University of Central Florida

CISE REU: Research Experience for Undergraduates in Process Automation and Device/Circuit Designs for Semiconductor Manufacturing

This Research Experiences for Undergraduates (REU) Site project supports ten students per year in programs carried out during the summers for two years. The students work on projects involving process automation and device/circuit designs including work in robotics, image processing, and micro-electronic circuits. The institution has strong cooperative plans with Bethune-Cookman College and also with Lucent and Harris corporations. Students for the REU program are recruited nationwide, but the program focuses on students from the University of Central Florida, Bethune-Cookman College and nearby community colleges. The REU students spend a part of their time at an industrial company, or at Oak Ridge National Laboratory, or in some cases at another nearby college. The students are advised and reviewed by a team consisting of PIs, internal specialists, and outside experts.